Regulation of Hepatic Carbohydrate Metabolism

The hypothesis that lipopolysaccharide interacts with liver nonparenchymal cells producing an intercellular chemical mediator(s) which can interact with liver parenchymal cells increasing their fructose-2,6-bisphosphate (Fru 2,6-P2) concentration and phosphofructokinase activity is strongly supported by preliminary data and published investigations. The presence of these intercellular chemical mediator(s) is being established by determining whether addition of lipopolysaccharide to isolated rat liver Kupffer cells (macrophages) produces a factor(s) in the medium that mediates Fru 2,6-P2 concentration and phosphfructokinase activity in cultures of rat liver parenchymal cells. To test the possibility that the intercellular mediator formed by the nonparenchymal cells is a lipid, inhibitors of cyclooxygenase, lipoxygenase, and arachidonate released from membrane phospholipids are being used. The possibility that the factor secreted into the conditioned medium is a cytokine is also being tested by removing individual cytokines from the conditioned medium with specific antibodies. The effects of specific lipids and cytokines in the conditioned medium on parenchymal cell responses is being confirmed by direct testing using authentic compounds. Intercellular mediators formed as a result of incubation of lipopolysaccharide with Kupffer cells are being identified and any unique factor(s) which affect regulation of parenchymal cell Fru 2,6-P2 concentration and phosphofructokinase activity will be isolated and the chemical structure identified. Liver parenchymal cells (hepatocytes) comprise over 90% of the liver by mass and are the site of principal metabolic functions associated with the liver. The liver also contains non- parenchymal cells which comprise approximately 35% of the liver by cell number. In response to a variety of stimuli, these non- parenchymal cells synthesize and secrete biologically active lipids and peptides. The importance of these locally released peptide and lipid factors as intracellular communicators which regulate and amplify specific physiological processes has been suggested for many years. Recent studies have now implicated intra-organ communication between parenchymal and non-parenchymal cells. Evidence suggests that non-parenchymal cell mediate regulation of parenchymal cell carbohydrate metabolism. This research examines this phenomenon with the intent of increasing our understanding of how liver carbohydrate metabolism (an essential life function) is regulated.